Temporal Evolution of the Transantarctic Mountains and West Antarctica

This award supports a project to utilize fission track analysis to address the uplift and denudation history of the Transantarctic Mountains in the Horlick and Thiel Mountains, and The Ellsworth Mountains in West Antarctica. Sampling strategy in each region will vary according to relief, rock type, proximity to tectonic features, and lateral extent of outcrop. Samples will be returned to the Fission Track Laboratory at Arizona State University and processed for counting using the external detector method, as well as track length measurements.